Acquiring Access to Internet Via Midnet

9312269 Christensen This project connects Sioux Falls College to NSFNET through the MIDNET mid-level network over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years. ***